EAGER: Small Motionless Antenna with Reconfigurable Transmission

Rescue operations in the wake of a hurricane has been hindered by the absence of a compact apparatus for underwater communication. Data can be transmitted or received through seawater, earth, or other challenging environments at the rate between 1000 and 10,000 events per second by stationary or rotatory methods. The antennae for such transmission ought to be portable so that they can be carried by first responders. Stationary antennae as simple as a loop of wire are not portable as they require kilometers of real estate. Rotatory antennae employing motor(s) driving permanent magnets suffer from reliability, noise, and service duration associated with moving parts. The proposed concept overcomes these shortcomings by avoiding bulk motion in the synthesis of a centimeter-sized antenna swirling a magnetic cloud. It relies on 'variable material' rather than the 'variable structure' on which mechanical rotation relies. Local first responders will be consulted, and their feedback will be used to identify design constraints. Electrical, civil, and ocean engineering students will learn electromagnetism, power electronics, and hardware validation.

The main objective of the work plan is to reduce the dimensions of an ultra-low-frequency antenna from kilometers to centimeters. The full proposal proves mathematically that such drastic size reduction requires the generation of a rotating magnetic field. The EAGER novelty is to create such rotating magnetic field without using moving parts. Two pieces of hardware will be designed, constructed, and tested: an ultra-low-frequency antenna and a sensitive magnetometer capable of detecting femto-Teslas. The antenna is constructed from two basic cells. Each basic cell comprises a Neodymium magnet serving as a source of magnetic flux, a ferrite yoke serving as a high-permeability conduit of magnetic flux, and a current-controlled saturable inductor serving as a 'shutter' for magnetic flux. The shutter's core is realized by non-oriented 80% nickel-iron alloy or square-loop ferrite that can be saturated with low control current. At zero control current, the shutter's permeability is high. Since the ferrite yoke's permeability is already high, the flux from the magnet is trapped (no emission) by the shutter and the yoke. As the control current increases, the shutter's permeability decreases to let more flux emit from the magnet. A circular array of basic cells and the associated modulated control currents will generate a spinning magnetic cloud. Simulation of a preliminary design suggests that 100 femto-Teslas at 1000 Hertz would be detected under seawater at 100m away from a two-cell prototype with dimensions of 15 x 9.5 x 3 cubic centimeters. This preliminary design will be refined in the first quarter, and a flux shutter will be constructed. The shutter, ferrite yoke, and permanent magnet will be integrated to realize the antenna in the second quarter. A single-axis induction magnetometer will be designed and tested in the third quarter to measure the expected femto-Teslas at 100 m away. Three-axis magnetometer will be constructed in the fourth quarter to detect the field vector. The power electronics to drive the antenna will be designed and fabricated by the third quarter. The antenna and its driver will be integrated and field-tested in the fourth quarter. The project is deemed successful upon detection of 100 femto-Teslas at 1000 Hertz at 100m distance with an antenna volume less than 450 cubic centimeters, and without moving parts.